Dynamics of Magnetic Flux Elements in the Solar Photosphere

The investigators obtain new observations of magnetic structures in the solar atmosphere to measure velocities of their elements with higher accuracy. Using a CCD camera that can acquire and save images at a higher rate, they are measuring and correcting for images over a 10-second sampling interval. Recording data on shorter time scales allows measurement of very small motions of photospheric bright points, particularly the vortical motions predicted from 3-D modeling and occasionally observed. These motions play an important role in heating the chromosphere and corona, and results are tested against models of 3-D structure to determine their implications in understanding this phenomena.